Optimal Lending Contracts and Firm Dynamics

This project studies borrowing constraints and their implications for firm
growth and survival. Recent empirical work suggests that financial
constraints are an important determinant of the evolution of small and young
firms. As repayment of loans cannot be always guaranteed, long-term
contracts can often provide better incentives to borrowers. Applying recent
advances in contract theory, this project considers the optimal design of
such long-term lending contracts. Implications for firm dynamics --growth and
survival-- of small and young firms are considered.